Enhancing Computer Integrated Manufacturing in UndergraduateEducation

Valencia is in the process of implementing a Computer Integrated Manufacturing (CIM) Training Facility to provide students with the opportunity to enhance their skills and to participate in applied research projects. The implementation includes acquisition, installation and testing of additional electronics equipment used in manufacturing and supported by curriculum revision. As a result of the additional equipment, students study a fully automated Surface Mount Technology (SMT) assembly process. The process can simulate almost any automated assembly or test requirement. Electronics Engineering Technology (EET) and CIM students at Valencia will, as a result of the additional equipment, be more independent in their critical thinking and decision-making in electronics engineering. Pre-engineering students on a professional career track will be able to enroll in courses that will teach the application of sophisticated instrumentation that will assist them in performing applied research and expand their vision for design potential, manufacturing potential and quality potential.